A Unified Approach to Deep Circumstellar Imaging

Abstract FLACLAS, C. AST-9618803 Funds will be used to build an optimized coronographic imager for use with the adaptive optical system on the 100-inch telescope at the Mount Wilson Observatory. The Imager will be used to evaluate the performance limits for coronographic systems in imaging circumstellar regions.